Support of an Undergraduate Research Site at Santa Fe Institute

This grant will support an REU Site at the Santa Fe Institute, so that SFI can expand its existing program which provides undergraduates with the opportunity for research in the field of adaptive computation in particular and complex adaptive systems in general. Such studies are particularly appropriate as an entry point for undergraduates into research. The program will be open to students in a broad range of the physical, biological, and computing sciences.